Oceanographic Instrumentation 2002

0201982
McDuff
This award to University of Washington's School of Oceanography provides instrumentation to significantly improve the oceanographic research capabilities of the research vessels Barnes and Thompson, two ships operated by UW as part of the University-National Oceanographic Laboratory System research fleet. The specific items supported with this award include a hull-mounted acoustic current profiler and a water purification system for R/V Thompson, and a thermosalinograph for R/V Barnes. These improvements will be of substantial advantage to marine scientists using these two ships in their research during 2002 and future years.
***